Symposium P: Nanoscale Materials and Modeling-Relations Among Processing, Microstructure and Mechanical Properties

Symposium P: Nanoscale Materials and Modeling-Relations Among Processing, Microsructure and Mechanical Properties

2004 Materials Research Society Spring Meeting
San Francisco Moscone West
San Francisco, CA
April 12-16, 2004

Intellectual Merit

The focus of this symposium will address the relations among synthesis, structures, and mechanical properties of nanoscale materials, studied using experiments and/or modeling. The focus will be on new phenomena observed in nanostructured materials when the characteristic length scales (such as grain size or layer thickness) approach nanometer dimensions. The spectrum of invited speakers was chosen to draw in the leading edge in this field with the newest results, and the sessions cover topics ranging from metals to biologically-derived materials.

Broader Impact

The impact of this symposium will be to foster new awareness and interaction between researchers in this emerging field, and particularly expose new researchers (via this funding) to the established members of the community. The goal is to advance knowledge in the area of structure-property relationships in nanomaterials, be able to use this information in conjunction with advanced processing techniques, and to design nanomaterials with desired advanced mechanical properties.